Research Experiences for Undergraduates at Virginia Commonwealth University

Dr. Joseph Topich and other members of the Chemistry Department of Virginia Commonwealth University are being supported for a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, six undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the focus on minority students from neighboring institutions.